CAREER: Time Reversal and Inverse Problems in Wave and Particle Propagation

Bal
The investigator and his students study wave and particle
propagation in heterogeneous media and related inverse problems.
More precisely, they analyze the refocusing and stability
properties of time reversed waves, which can be used in
non-destructive testing and wireless communication. They also
analyze photon propagation in human tissues to understand how the
properties of these tissues can be imaged from photon intensity
measurements. Numerical tools and software are developed to
simulate the aforementioned forward and inverse problems. The
investigator also develops a course on theoretical and numerical
inverse problems.
In many applications a good understanding of wave and
particle propagation in complicated media is necessary: seismic
wave propagation generated by earthquakes, acoustic wave
propagation to destroy kidney stones (lithotripsy), microwave
propagation in wireless communication, or photon propagation in
optical tomography, a quite powerful imaging technique to detect,
for instance, brain tumors and finger arthritis. The investigator
devises theoretical and numerical tools to analyze wave and
particle propagation and to understand how it can be used to
solve practical problems, such as the maximal capacity of
communication that can be obtained in a specific environment, or
the minimal size tumor that can be imaged in optical tomography.
It is also a primary goal of the investigator to teach coming
generations of undergraduate and graduate students the novel
techniques that have emerged recently in the applied mathematical
community to address these problems.